STTR Phase II: 3D Lithography of Thick Photopolymers for Imaging and Photonic Crystal Waveguides

This Small Business Technology Transfer (STTR) Phase II project will culminate in a new form of 3D lithography capable of fabricating imaging arrays and photonic-crystal waveguides that are cheaper, higher performance, lighter, more flexible and have capabilities not currently possible with current “stack and draw” manufacturing. For example, by directly fabricating these parts at the micron scale, perturbations such as global scaling (to implement magnifying arrays), global rotation (to implement image inverters) or local scaling (to implement modal tapers or integrated lenslets) can be created in a single process step. Unlike current methods which must draw out a minimum of km from a preform, here single parts can be cm in length. The imaging arrays have significant commercial potential as replacements for current endoscopes, fiber face plates and image inverters. They also enable new markets including inexpensive eye monitoring for clinical and public safety applications, wearable gaze-tracking for human-computer interface for paralysis victims, and ultra lightweight heads-up displays for military and consumer entertainment. The team will develop both the lithography and materials to create these all-polymer imaging cables.

The transport and manipulation of optical images is ubiquitous but nearly uniformly implemented with delicate, rigid lens trains. Discrete imaging devices such as fiber bundles are sufficient for modern digital displays and cameras and are naturally robust, but currently limited by cost and capability. By enabling flexible, lightweight transport of discrete images, the results will impact ? Education, Medical and Biological Research and Macular Degeneration. The Phase I including supplementary funding has partially funded 7graduate, 1 post-doc and two undergraduate students. An exchange of graduate students with Dublin Ireland extended this impact. The lithography system has been used in multiple undergraduate class projects and for multiple cross-disciplinary graduate research programs. Disposable endoscopes with high resolution, small diameter and large field of view exceed current capabilities at much lower costs. Zenwa has signed a collaborative agreement with the Smith-Kettlewell Eye Research Institute to develop a lightweight customized image delivery system to restore sight to the severely vision impaired.